Negation Licensing and Clausal Organization

ABSTRACT Most, if not all, languages have constructions which require 'negative licensing', constructions whose occurence depends on the appearance of an expression of negation somewhere else in the clause. This project explores the phenomenon of Negative Licensing in several languages with differing clause structures, highlighting the differences in Negative Licensing which follow from the different ways in which these languages express the universal semantic and pragmatic category of negation. The Research provides a fruitful testing-ground for current theories of the relationship between the syntactic structure of a sentence and its semantic structure. There is considerable evidence that much of the crosslinguistic variation in Negative Licensing phenomena can be attributed to the surface position of negation in different languages. The investigators use the pattern of Negative Licensing as a probe in the investigation of the role played by the negation-element in the syntactic organization of the clause. The project will result in detailed analyses of the system of negation in several dialects of English, in Irish, and in several other languages in addition to increasing our general understanding of the typology of clause structure in the languages of the world.